Holistic Approach to Mechanics of Heterogeneous Media

9712227 Fish The proposed research effort develops an experimentally calibrated mutiscale modeling approach for composite materials and structures aimed at accurately predicting the macromechanical (overall) structural response, such as critical deformation, vibration and buckling modes, as well as various failure modes on the mesomechanical (lamina) level, such as delamination and ply buckling, and on the micromechanical (the scale of microconstituents) level, such as debonding, microbuckhng, etc. Adaptive multiscale modeling approach developed in this research enables the analyst to start from a simple model, based on the classical step-by-step uncoupled approach, which may or may not adequately simulate the response, and then adaptively refine both the mathematical and numerical models to permit coupled multiscale ccisiderations, whenever and wherever these are needed. ***